SAGE: A Submillimeter Grating Spectrometer for Exploring Distant Galaxies

AST-0096881
Stacey, Gordon J.

A highly sensitive spectrometer designed specifically to observe Extragalactic objects for point source spectroscopy in the submillimeter (350, 450, and 610 micrometer) bands with an instantaneous bandwidth of 6.7 GHz. will be designed, engineered, built, calibrated and applied to acquire data to: Investigate star formation in the early universe, measure redshifts of optically obscured distant galaxies, investigate the sources in Ultraluminous galaxies (originally discovered by IRAS) using spectroscopy, and investigate proto-galaxies. This new instrument is a background limited moderate resolution spectrometer called SAGE for Submillimeter Array Grating Explorer.
***